EGAMES PLANNING GRANT

WGBH is conducting preliminary work on an untested and novel idea for a new multimedia project, EGames. The target audience for the project is children ages 9-12. The project envisions a 13-part television series which combines the appeal of a game show with the drama of real-world challenges to engender enthusiasm and promote understanding of engineering in kids nationwide. The television programs will be complemented with materials and training for engineers to mount EGames events in public venues and run workshops in schools, afterschool programs and libraries, and an extensive companion website.

During the research phase, WGBH will convene a Content Advisory Board which would include professional engineers, curriculum developers, classroom teachers, professors of engineering and informal educators, and a Funding Advisory Board. They will also write the series curriculum, design the game, develop outreach, Web, and evaluation plans, and develop and test a sample engineering challenge with a group of contestants to work out logistic and production questions. This will inform the next stage of project development.